Hard Processes in Nuclei

Dr. Luiti's research is on the phenomenlogy of hard processes in nuclei. The work concentrates on open problems in deep inelastic lepton scattering from nuclei and heavy quarks production in hardon-nucleurs collisions. High energy experimental data on nuclei collected in the last decade to present show that nuclei do not simply behave as a collection of free nucleons, and quark distributions might be modified in the nuclear environment. New lines of research have been developing since then, pursuing the idea that by studying the modifications of hadronic properties and interactions due to the nuclear medium, one might be able to have an understanding of the hadronic properties and interactions themselves. Interactive activities include: teaching a graduate course titled "Hard Processes in Nuclei," organizing a series of seminars with women speakers in the field of nuclear and particle physics; organize a women's group in physics and working with the society of Physics Students.